Study of Anti-Proton Collisions at 2 TeV in the Center of Mass (Physics)

The research activity is the development, and use in physics measurements, of a particle detector system for the DO intersection region of the proton-antiproton collider at Fermilab. This detector system, called the DO detector, is expected to be one of the most important instruments for elementary particle physics research during the next decade. The DO detector will be used to measure the properties of the "weak bosons", carriers of the weak nuclear force; study the properties of the strong nuclear force (quantum chromodynamics); and search for yet undiscovered phenomena. The field of research is that of experimental elementary particle physics. This research studies the basic building blocks of matter (e.g., electrons, positrons, quarks, and weak bosons) at very high energies. The experiments use accelerators (colliders) which provide the highest energy particles made in the laboratory. The data is collected and analyzed using highly complex and sophisticated apparatus and techniques.